U.S.-France Cooperative Research: A Study of Multi-Style Speech Production-Data and Modeling

This three-year award for U.S.-France cooperative research on speech production involves the research group at the Massachusetts Institute of Technology (MIT) led by Joseph Perkell and Pascal Perrier's laboratory at the Institut National Polytechnique de Grenoble, Grenoble, France. The objective of the research is to investigate variations in speech that depend on speaking style and phonological input within the same speaker. Articulatory, kinematic and acoustic data will be collected on simple utterances at MIT. The French laboratory will use these data to guide control of a simulation of the speech production apparatus. The project takes advantage of a 2-D biomechanical/physiological model tongue developed by the French investigators. It will advance fundamental understanding of speech production.